Collaborative Research: Antarctic Cretaceous-Cenozoic Climate, Glaciation, and Tectonics: Site Surveys for Drilling from the edge of the Ross Sea Shelf

Luyendyk et al.: OPP 0088143
Bartek: OPP 0087392
Diebold: OPP 0087983

This award, provided by the Antarctic Geology and Geophysics Program of the Office of Polar Programs, supports a collaborative research program in marine geology and geophysics in the southern central and eastern Ross Sea. The project will conduct sites surveys for drilling from the Ross Ice Shelf into the seafloor beneath it. Many of the outstanding problems concerning the evolution of the East and West Antarctic Ice Sheets, Antarctic climate, global sea level, and the tectonic history of the West Antarctic Rift System can be addressed by drilling into the seafloor of the Ross Sea. Climate data for Cretaceous and Early Cenozoic time are lacking for this sector of Antarctica. Climate questions include: Was there any ice in Late Cretaceous time? What was the Antarctic climate during the Paleocene-Eocene global warming? When was the Cenozoic onset of Antarctic glaciation, when did glaciers reach the coast and when did they advance out onto the margin? Was the Ross Sea shelf non-marine in Late Cretaceous time; when did it become marine? Tectonic questions include: What was the timing of the Cretaceous extension in the Ross Sea rift; where was it located? What is the basement composition and structure? Where are the time and space limits of the effects of Adare Trough spreading? Another drilling objective is to sample and date the sedimentary section bounding the mapped RSU6 unconformity in the Eastern Basin and Central Trough to resolve questions about its age and regional extent. Deep Sea Drilling Project (DSDP) Leg 28 completed sampling at four drill sites in the early 1970's but had low recovery and did not sample the Early Cenozoic. Other drilling has been restricted to the McMurdo Sound area of the western Ross Sea and results can be correlated into the Victoria Land Basin but not eastward across basement highs. Further, Early Cenozoic and Cretaceous rocks have not been sampled. A new opportunity is developing to drill from the Ross Ice Shelf. This is a successor program to the Cape Roberts Drilling Project. One overriding difficulty is the need for site surveys at drilling locations under the ice shelf. This project will overcome this impediment by conducting marine geophysical drill site surveys at the front of the Ross Ice Shelf in the Central Trough and Eastern Basin. The surveys will be conducted a kilometer or two north of the ice shelf front where recent calving events have resulted in a southerly position of the ice shelf edge. In several years the northward advance of the ice shelf will override the surveyed locations and drilling could be accomplished. Systems to be used include swath bathymetry, gravity, magnetics, chirp sonar, high resolution seismic profiling, and 48 fold seismics. Cores will be collected to obtain samples for geotechnical properties, to study sub-ice shelf modern sedimentary processes, and at locations where deeper section is exposed.

This survey will include long profiles and detailed grids over potential drill sites. Survey lines will be tied to existing geophysical profiles and DSDP 270. A recent event that makes this plan timely is the calving of giant iceberg B-15 (in March, 2000) and others from the ice front in the eastern Ross Sea. This new calving event and one in 1987 have exposed 16,000 square kilometers of seafloor that had been covered by ice shelf for decades and is not explored. Newly exposed territory can now be mapped by modern geophysical methods. This project will map geological structure and stratigraphy below unconformity RSU6 farther south and east, study the place of Roosevelt Island in the Ross Sea rifting history, and determine subsidence history during Late Cenozoic time (post RSU6) in the far south and east. Finally the project will observe present day sedimentary processes beneath the ice shelf in the newly exposed areas.